Instrumentation Grant for Research in CISE: Telecommunications in Virtual and Real Environments

9422123 Volz This award is to purchase equipment to support research in distributed real and virtual environments, including: 1) Attentive Model for Video Telecommunication -- A framework for video analysis utilizing visual attention theory and eye movements is expected to yield high compression ratios; 2) Attention-Based Graphical Display of Complex Virtual Environments -- An attentive display-time compression strategy will be developed, which tracks the viewer's eyes and matches the imagery to the perceptual limitations of the human visual system; 3) Intelligent Control in a Telerobotic Network Using Predictive Simulated Reality -- To counteract problems over long distances, predictive simulation and intelligent control are planned, in which the operator enters a virtual world corresponding to the real world; 4) Developing a General Framework for Natural and Precise Gestural Manipulations -- A logical hand device to support precise and natural hand manipulations in virtual environments, e.g., a general framework to compose and manipulate 3-dimensional widgets and a sub-gesture alphabet to tokenize American Sign Language are presently being developed; 5) Rehabilatory Head Mounted Display Applications for the Physically Challenged -- Virtual Reality technology are used to aide in the diagnosis and monitoring of subjects participating in physical rehabilitation and training programs, through the use of body tracking devices and Augmented Reality displays. ***